Accelerator Physics for Undergraduates in Science and Engineering

This award is make as part of the Instrumentation and Laboratory Improvement program. This program funds innovative new projects for undergraduate physics laboratories. The Principal Investigator of this project is Dr. Jones of Union College.